Connecting the Fielding Electronic Network (FEN) to NSFNet

9402621 Porras This project connects the Fielding Institute to the Internet over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.